Dissertation Research: The Organization of Complexity: A Study of Late Prehistoric Village Organization in the Eastern Aleutian Region

ABSTRACT OPP 9629992 Maschner, Hoffman This dissertation grant is for support of an archaeological project on Unimak Island in the Aleutian Islands, Alaska. The goal is to illuminate the socio-economic organization of a complex hunter-gatherer village. The site consists of some nine semi-subterranean houses. Preservation at the site is excellent and this site is ideal for archaeological study in this little known region. Ethnohistorical and archaeological data suggest that early contact-period Aleut society was socially and politically complex. There were numerous ranked societies, permanent communal houses, intensive warfare and inter-regional exchange networks. The relationships between rank, economic organization, and the corporate group will be investigated through the excavation of these multi-family houses and analysis of artifacts, features and food refuse.